Scalable MMIC Receiver Array Development for Millimeter-wave Spectroscopy, Polarimetry, and Interferometry

This award is funded under the American Recovery and Reinvestment Act of 2009 (Public Law 111-5).

A four-pixel prototype heterodyne focal plane array based on Monolithic Millimeter Integrated Circuit technology will be built. The purpose is to demonstrate the feasibility of a scalable focal plane array technology based largely on technology developed for commercial applications. The ultimate goal is to demonstrate the feasibility of an array of hundreds of pixels supporting fractional bandwidths as great as 20% at millimeter wave frequencies.